Conference on Complex Dynamics

Abstract
Retakh/Tabachnikov/Lanzani

The Department of Mathematical Sciences at the University of Arkansas has hosted a series of annual conferences, focused on topics of current international research that are also related to research activity within the Department. This conference is focused on complex dynamics, and features several of the international leaders in the field as well as many young investigators. Most of the requested support is enable a substantial number of graduate students and young researchers to attend the conference. There is also substantial support from the Department. This award is to partially support this seminar.